A Multidisciplinary Synthesis of the Chukchi Sea Ecosystem: Physical Processes

This collaborative effort will make use of an extensive and unique data set collected over several years from the Chukchi Sea. Investigators from three institutions will study the interactions of physical, chemical, and biological processes of the Chukchi Sea ecosystem to define its present and perhaps future trophic status through a series of data and simulation analyses. The physical processes associated with biological and chemical processes in the Chukchi Sea will be assessed using data from a series of 13 current meter moorings in 1990-1991 and seven bilateral U.S.-U.S.S.R. cruises during 1988-1991. Work will be undertaken to analyze the buoyancy and current fields from the year-long time series data together with the wind field; to examine the role of physical processes, with a particular emphasis on the variability of the shelf circulation over the year, the role of the wind in forcing the shelf circulation, and the variable fluxes of heat, salt, and other dissolved substances through the system. The source water concentrations of nutrients will be combined with buoyancy flux estimates to calculate nutrient flux estimates. Nutrient budgets for the Chukchi Sea shelf will then be constructed and compared to subsurface oxygen inventories and primary production estimates. The work supports the goals and research priorities of the Arctic System Science (ARCSS) program of the Global Geosciences Initiative.